Seismological Database Software Implementation

9316337 Wyss This project involves the production of modern, portable software tools that will enhance researchers' capabilities throughout the seismological community by efficiently and effectively creating, managing and using seismological databases. This work is in collaboration with U.S. Geological Survey scientists and other Alaska institutes. It will build on prior efforts to develop the Seismic Unified Data System (SUDS). One of the first implementations of the product will be to implement a relational database from the approximately 4,000 earthquakes and one terabyte of continuous data annually recorded by the Alaska Seismograph Network at the Geophysical Institute, University of Alaska, Fairbanks to aid in research, understanding and mitigation of seismic and volcanic hazards. This research is a component of the National Earthquake Hazard Reduction Program. ***